Modernization of Undergraduate Biology Laboratory Programs for Communications Majors

This institution specializes in training future communications professionals, among whom are significant proportion of minorities. The Science Department provides instruction in basic science which is integrated with the students' communications specialties through the preparation of reports such as videotapes or films on individual research projects. One of the shortcomings of the students' training has been the lack of experience with modern instrumental techniques. The instruments purchased through this project have applications in all Biology laboratory courses, and are available for use in students' research projects. As a result of this improved science training, it is expected that graduates, in their future careers in communications, will be able to report more effectively to the public on matters of science and technology. The grantee institution is matching the NSF award with an equal sum obtained from non-Federal sources.